Development and Application of Descriptive Complexity

Descriptive Complexity measures the richness of a language or sentence
needed to describe a given property. The languages are variants of
first-order logic and their targets are finite, ordered structures. There
is a profound relationship between the traditional computational complexity
of a problem and the descriptive complexity of the problem; indeed, all
major complexity classes have been shown to have natural descriptive
characterizations. This means that complexity can be understood entirely
from a logical point of view. As a consequence, important new
understandings about complexity have arisen from the descriptive point of
view.

The current research involves three major topics: (a) The theory of dynamic
complexity, which is especially appropriate for database complexity, is
being studied. Complete problems for dynamic complexity classes are being
developed and the complexity of important dynamic problems such as graph
reachability are being investigated; (b) Promising new methods for proving
lower bounds techniques on the descriptive complexity of problems have been
developed and are now being extended; and finally, (c) A Descriptive
Programming environment is being developed in which the computational
complexity of checking whether an input satisfies the properties being
described can be read from the face of the description.